Contamination of Groundwater by Grout Leachate

The proposed research will address the various mechanisms by which grout components could be released from the stabilized soil mass, and measure the resultant concentration of these components in the leachate. These concentrations will be determined by total organic carbon analysis and inductively-coupled plasma emission spectrophotometry, respectively. The toxicity characteristic leaching procedure will also be performed on the most promising of the formulations identified for each of the grouts investigated. Leachate characterization tests from soaking and permeation tests on samples excavated from the prototype grout bulbs and acute toxicity tests will also be conducted.